Automated Rapid Prototyping Environment

An automated rapid prototyping environment for software systems has three major components: an (existing) prototyping language, a software base, and an (existing) prototyping method. The research objectives of the project are to enable the construction of a software base with capabilities for retrieving reusable software based on formalized component specifications and to develop implementation techniques for the prototyping language. The approach will be to enhance the component specification aspect of the prototyping language to allow reduction to a normal form, which will alleviate inexact match problems in retrieving components from the software base. The use of generalization per category for structuring the software base to aid component retrieval will also be investigated. The relation between the specification language and the software base operators will be established. Efficient interpretive techniques for implementing the prototyping language will be sought, and evaluated with the aid of an attribute grammar based translation tool. Justification and Recommendation The research will enable automated prototyping based on reusable software, which will make it practical to validate software requirements via rapid prototyping.